Transport Protocols for the Wired/Wireless NGI: Implementation and Experimental Evaluation

The Next Generation Internet (NGI) poses scalability challenges to the efficient operation of
the transport protocol (TCP). In particular, as the product (bandwidth x delay) grows, the
congestion window required to .fill the pipe. becomes quite large, especially on cross-country
links. One well known problem in TCP in this scenario is the selection of the .initial
window.. More recently, new challenges have emerged because of the increasing popularity
of nomadic access to the Internet via wireless links (e.g., wireless LANs, satellite links,
UMTS, etc). The data rates on wireless links have been constantly on the rise, approaching
the 50Mbps on 802.11a wireless LANs and thus providing an effective extension of backbone
services to mobile users. However, wireless links tend to introduce random packet errors and
loss that are not correlated to congestion. This creates problems to conventional TCP
protocols (e.g., TCP New Reno and TCP SACK), which interpret any loss as a buffer overflow
(i.e., as a symptom of congestion) and thus reduce the congestion window unnecessarily with
consequent loss in performance. The drop in performance is proportional to the (bandwidth x
length) product of the connection and can be quite significant in the high bandwidth NGI
environment, especially on cross country paths including .last hop wireless LANs, UMTS
links, or high bandwidth satellites.
Several approaches to enhance TCP congestion control over high bandwidth wireless links
have been reported in the literature (e.g., TCP Peach, TCP Westwood (TCPW)). Some of
these enhancements have been quite successful. For example, TCPW, a TCP variant that
uses bottleneck bandwidth share estimation. to adjust the congestion window upon loss, has
shown scalable properties and good link utilization in large leaky pipes., (i.e. large
bandwidth delay product, and non negligible random packet loss).
This proposal is about carrying out a systematic, experimental investigation of performance
of TCP over wired/wireless paths. This investigation will include the comparison of various
TCP enhancements proposed so far in the literature. It will consider a representative set of
experimental environments and application scenarios. The proposed project is in part
motivated by our recent positive experience with TCPW Internet experiments of large file
transfers over lossy paths. In this project the researchers will broaden the scope to include a vast gamut of TCP wireless enhancement techniques. The researchers will identify the pros and cons of each scheme, characterize the traffic/network environment for which it is best suited, and, more generally, develop models that relate wireless media characteristics, TCP congestion control
parameters and performance results.
In summary, given: (1) the increasing importance of nomadic computing and wireless access
to the high speed wired Internet; (2) the performance degradations observed in conventional
TCP protocols over wireless path, and (3) the encouraging improvements offered by
modified, wireless versions of TCP (which yet retain the basic end to end paradigm), the researchers believe this a very appropriate time to engage in a systematic, experimentally based
evaluation of wireless TCP protocols by a team that includes protocol developers,
applications developers and network measurement experts.